Engineering/Management Workshop

ABSTRACT: PI-Gerstenfeld, Worcester Polytechnic Institute, MSS-9311997: The objective of the workshop is to investigate the preparation of engineering students for managerial decision making. Topics to be discussed are: engineer's role as managers, global competitiveness, and how best to integrate management training in engineering curricula.